Invariants in Low Dimensional Topology

DMS-0305012
James Conant

The principal investigator, a low dimensional topologist, is utilizing a
tool he developed with Peter Teichner (called ``grope cobordism") to find
topological applications and interpretations for an important class of
invariants called Vassiliev invariants. In particular he and Teichner are
pursuing the question of whether Vassiliev invariants detect knottedness.
The principal investigator is also looking for more powerful versions of
the theory of Vassiliev invariants, hopefully giving rise to four
dimensional (concordance) information. Some of this is joint with Jacob
Mostovoy and Ted Stanford. Working jointly with Matt Horak and Karen
Vogtmann, the principal investigator is studying the mapping class group
of surfaces via a tool developed by Harer, Penner, and elucidated by
Kontsevich (graph homology). Graph homology is very similar to the algebra
that appears in the context of Vassiliev invariants. The principal
investigator is also studying the group of outer automorphisms of a free
group via graph homology. Finally, the principal investigator, working
jointly with Ryan Budney, Kevin Scannell, and Dev Sinha, is pursuing a
program for grounding Vassiliev invariants in classical homotopy theory
and differential topology. This program has already borne fruit in terms
of geometric interpretations of the simplest Vassiliev invariant.

The yoga behind the theory of topological invariants is that they provide
useful, computable topological information. When the number of dimensions
is large, complete answers to topological questions can often be found
using algebraic invariants. In low dimensions, such as 3 and 4, the
situation is more complicated. The invariants still exist, but they are
much weaker, and usually do not give complete answers. On the other hand,
there are lots of invariants in low dimensions which don't have high
dimensional analogues, and which are poorly understood topologically. For
example, there is a polynomial you can associate to any knotted loop (such
as a piece of DNA or a singularity in spacetime) which will not change
even if the loop is pushed and pulled into a new shape. This polynomial,
called the Jones polynomial, has a definition which eludes any topological
interpretation and whose topological applications have been modest. The
principal investigator is working to understand precisely the connection
of this polynomial (and other similar objects) with topology, and this
will lead to more effective methods for answering questions in low
dimensional topology and beyond.